A Dynamic Heat Pump Experiment for the Undergraduate Energy Laboratory

The aim of the project is to introduce dynamic operation, control and analysis into the energy laboratory via a new heat pump experiment that is to be developed and constructed using a vapor compression cycle. It consists of a 1 to 2 ton refrigeration compressor driven by a programmable variable speed drive, and arranged so that "heat" can be pumped in either direction between two identical insulated liquid filled tanks. Valves are provided so that the role of the evaporator and condenser can be reversed. This allows a rapid cycle time so that several dynamic experiments can be run during the course of a single two hour laboratory period. The pressure, temperature, flow, motor speed and torque transducers will input to a PC via an A/D convertor so that the transient can be recorded and displayed, and so that data analysis can be performed. The students can examine how the system responds to changing loads, they can observe the change in COP during the course of the work cycle, and they can consider several control strategies in an effort to minimize energy consumption. A synergy of energy and design related concepts is emphasized in the experimental design.